NAS Colloquium on Carbon Dioxide and Climate Change

ABSTRACT The National Academy of Sciences, through the Ocean Studies Board of the Commission on Geosciences, Environment, and Resources, will convene a colloquium on carbon dioxide and climate change to document the present state of research and knowledge in this field. This colloquium will be held in honor of the late Professor Roger Revelle, a pioneer in assessing anthropogenic effects in the global carbon cycle. This colloquium will be jointly supported by the NAS, DOE, NOAA, NASA and ONR along with NSF.